Mathematical Sciences: Dynamical Systems in Structured Populations

9403884 Thieme The investigator studies the interplay of intrinsic population structures and population development via differential equations models. The structures of interest are induced by individual characteristics like (chronological or class) age, size, location etc. A particular goal is to identify those structures the introduction of which into a previously unstructured model changes the dynamical behavior of the model solutions. Specifically, he examines the influence of class age and chronological age on models of endemic diseases, the impact of body size structure on populations of zoo-plankton, and evolutionary aspects in structured metapopulation models. Mathematically, the introduction of population structure typically converts small systems of ordinary differential equations into large systems of ODEs or into integral, integro-differential, functional differential or partial differential equations. These equations are studied as evolution equations (dynamical systems) in an appropriate Banach space, which typically is infinite dimensional or has a large finite dimension. The study uses methods of linear and nonlinear functional analysis and dynamical systems theory. While establishing existence and uniqueness is a necessary and often not trivial step, the focus is on studying the qualitative behavior of solutions addressing stability, damped and undamped oscillations, persistence, and permanence. In order to interpret, forecast, manage and control the dynamics of microbial, plant, animal and human populations it is necessary to understand the interaction between inherent population structures (as given by age, body size, location etc.) and population development. The investigator develops mathematical concepts and tools to formulate and analyze appropriate models for this interdependence. Particular points of interests are how population structure affects stability, resilience, persistence and extinction of populations; fu rther, how to interpret population data in terms of individual well-being. The latter is relevant, e.g., for the use of micro-organisms in testing detergents. Important examples of structured populations are structured metapopulations. Many populations live in a patchy environment, leading to the formation of local populations that often go extinct and are recolonized by individuals immigrating from other local populations. The number of populations forming metapopulations of the above kind increases because the formerly continuous habitats of many species are fragmented. Metapopulation dynamics are important issues in conservation biology and re-establishment of naturally extinct species.